CT-ISG: Collaborative Research: Trustworthy Enforcement of Domain-Independent Run-Time Policies

CT-ISG: Collaborative Research: Trustworthy Enforcement
of Domain-independent Run-time Policies
Abstract
Run-time monitors are a common and pervasive mechanism for ensuring that software and
systems adhere to security policies. Anti-virus and anti-spyware programs, personal firewalls,
intrusion-detection tools, Java's stack inspection, and even mechanisms that trap operatingsystem
exceptions in order to show a “blue screen of death” can all be thought of as run-time
monitors. Although they differ greatly in their complexity and scope of policies that they can
enforce, these mechanisms all observe the behavior of a running system and detect and react
to potentially dangerous events. Despite the pervasiveness and real-world importance of runtime
monitors, their use has far outpaced theoretical work that makes it possible to rigorously
reason about monitors and the policies that they enforce, particularly in distributed settings.
This project develops models, tools, and mechanisms for reasoning about and implementing
distributed, concurrently executing run-time monitors. The research adopts a holistic,
four-prong approach that spans the breadth of the space between theoretical models and
practical systems for enforcing run-time policies. Specifically, this project (1) creates a
framework for reasoning about enforcement that permits the possibilities of concurrent, distributed
computations; (2) develops a type-safe policy-specification language that ensures
that specified policies compile into well-behaved monitoring mechanisms; (3) designs trustworthy
algorithms for automatically translating a desired overall policy into node-specific
policies that can be distributed and enforced throughout a network; and (4) designs, implements,
and tests a prototype system for specifying and enforcing run-time policies with
support for concurrently executing computations. Taken together, these research tasks enable
formal modeling and automatic enforcement of run-time security policies in concurrent
and distributed settings.